Applications of the Hardy-Littlewood Method in Number Theory and Beyond

This proposal highlights the role of the Hardy-Littlewood
(circle) method as a flexible tool that underpins progress
in many areas of mathematics intersecting with number theory.
The proposer intends to pursue a number of investigations
that illustrate this intersubdisciplinary aspect of the method,
concentrating on applications in arithmetic geometry and
combinatorics. First, the researcher constructs a large class
of examples of algebraic varieties, of relatively small
dimension in terms of their degree, that may be studied by
means of the circle method. Questions concerning the density
of rational points and weak approximation should be accessible,
the intention being to shed light on conjectures of Manin and
others. In a second direction, the proposer applies results
from the modern theory of diophantine approximation in order
to refine Gower's recent explicit version of Szemeredi's
theorem. In a more traditional line of enquiry, the researcher
investigates the distribution of the number of
representations of integers as sums of powers. The latter work
enables higher moments than the traditional mean square to be
considered, leading to multidimensional applications of
previously inaccessible type.

Number Theory studies the properties of integers (``whole
numbers''). Since antiquity, the study of diophantine equations
(equations to be solved in integers) has formed a core component
of Number Theory, and has recently influenced the development of
codes and cryptosystems (applied, for example, in data storage
systems such as compact disks and DVDs, communications systems and
banking security). The investigation of moment problems is a
fundamental topic for Fourier analysis, which in the larger setting
plays a crucial role in electrical engineering and communications.
The circle method, in its modern incarnations, provides a mechanism
for transferring technology from one of these areas to another,
and this proposal pursues basic research that facilitates such transfers.